Chemistry and Physics Fundamentals for Pre-High School Teachers

9353359 Schreck This project is for teachers of science in grades 6 - 9. The participants will attend two, four week summer workshops in order to gain an understanding of basic chemistry and physics concepts, develop effective methods of teaching these concepts in an integrated manner, and learn safe and appropriate methods of operating science apparatus, as well as proper handling of substances in classroom activities. The workshops will features content presentations, discussions, laboratory activities, demonstrations, safety sessions, teaching practice, planning outreach sessions and attention to interrelationships of these sciences and technology. Emphasis will be placed on core topics common to most middle school curricula along with effective methods for concept-based teaching using the teaching/learning cycle, cooperative learning, and improved integration of these sciences with other sciences and mathematics. There will be support offered for key physical science concepts supplemented by specially prepared background briefs, featuring applications and extensions of the topic. The teachers will also get a chance to practice with a group of students in the UNC science camp during the summer. The cost share is 11% of the NSF grant. ***